Development of an Activity-Based Introductory College Physics Curriculum Using Calculator-Based Laboratories

Studies have indicated that the lecture/laboratory method of teaching introductory physics is not as effective as many teachers would like for it to be. Some non-traditional methods have recently been developed in an attempt to remedy this problem; however, they depend heavily on the use of computers. Many colleges and universities have neither the funds nor the facilities for computer-based programs. There is an even more pressing need for low-cost innovation and new technology in high school physics classes. A comparable, but less expensive, program is needed. The goal of this project is to improve the quality of algebra-based introductory physics at the college level (and eventually at the high school level) by providing a more cost-effective way of utilizing the benefits of new technology within an activity-based format. This project will develop and test the effectiveness of an activity-based approach to teaching algebra-based introductory college physics that makes extensive use of the new calculator-based laboratory (CBL) system from Texas Instruments to collect and analyze data. This approach results in considerable cost savings compared to computer implementation. For twelve computer-based stations the cost is approximately $50,000 compared to about $10,000 for twelve calculator-based stations. The results of the evaluation will show the effectiveness of the activity-based CBL approach to teaching introductory algebra- based physics as compared to the traditional lecture/laboratory method. These results will be submitted for publication to appropriate periodicals. The written materials will be published in workbook form. The software that is developed will be available on the internet through Texas Instruments' archives and the department's WWW site.